Highly Parallel and Sensitive Holographic Planar Waveguides for Fluoroimmunoassay

Immunoassay has proven to be the most selective method for detection and identification of biological agents. Optical fluoroimmunoassay (FIA), with single photon counting capability, is supposed to be the most sensitive technique. Unfortunately, due to the high autofluorescent background from bulk samples, the sensitivity of FIA is often reduced. In response to the need for this technology, Physical Optics Corporation (POC)C) proposes to develop a compact, highly sensitive (0.01 picomole/ml) near-real time (less than 1 minute) biological instrument based on optical evanescent wave detection. The scope and versatility of this proposed method can be enhanced by combining the principles of fluoroimmunoassay and POC's holographic planar waveguide technology. Application of POC's proprietary transparent Moth Eye structure will increase the surface area of the waveguide, which is the sensing area of the device. The increase in surface area will enhance device sensitivity by two orders of magnitude over fiber optic sensors. The advantages of the proposed system include the conditions that it involves no wash, no analyte separation, no autofluorescence, and it can be simultaneously used to detect multiple analytes. The resulting device will be robust, easy to use, low cost, and will have low maintenance and calibration requirements.